Presidential Young Investigator Award: Underlying MechanismsAffecting Physical and Chemical Processes in Aqueous Systems

This is an award to provide support for research to be initiated by this Presidential Young Investigator who was nominated under conditions contained in the Program Announcement NSF 89-58. The broad goals of this investigator's research are concerned with understanding the underlying mechanisms that affect physical and chemical processes used to treat water and wastewater. She is particularly interested in to the role of particle chemistry and physics in coagulation, filtration, adsorption and disinfection and in the use of ozone as a destabilization agent and disinfectant in dilute aqueous systems. Results of this research are likely to be utilized in engineering design of processes and systems for removal of contaminants from municipal and industrial water supplies. The results are also potentially applicable to formulating models that track particles suspended in water as they move through groundwater aquifers.